Advanced Undergraduate Laboratory in Low Temperature Physics

A self-contained non-recirculating dilution refrigerator is the hub of a modern low temperature laboratory facility suitable for undergraduates. The refrigerator gives students the ability to perform dramatic experiments dealing with many contemporary research topics, such as quantum mechanical tunneling, quantum Hall effect, quasiparticle dynamics, and the behavior of mesoscopic systems. In addition, the design of experimental apparatus for the machine allows students to use the physical concepts introduced in formal coursework: temperature and thermometry, heat capacity, blackbody radiation, and thermal conductivity. The principal users of the equipment are junior-year honors students and senior-year physics students participating in an advanced laboratory program. By providing a rich, up-to-date research laboratory experience for students, the project is broadening their exposure to contemporary topics and experimental techniques, thereby preparing them better for graduate study and/or industry. The refrigerator also captures the interest of younger physics majors, and so provide a powerful incentive for early participation in research and further study in physics. The college is matching the award with an equal amount of funds.